REU Site: Functional Genomics Research Projects for Undergraduates

The Jackson Laboratory, in Bar Harbor, Maine, conducts research in functional genomics and in interdisciplinary approaches to solving biological problems using the latest genetic tools. Jackson Lab will recruit 8 undergraduate students each summer within the framework of its existing Summer Student Program. The 11-week program will offer students hands-on training in interdisciplinary research linking the biological, physical, and computational sciences to investigations of genome function. Each student will perform an independent, hypothesis-driven research project as a member of a sponsoring scientist's laboratory team. Students can select from among the scientific staff many of whom are leaders in the country. Participants will be chosen through a competitive nationwide application process to represent a diverse group with respect to gender, ethnicity, economic background, and enrollment in research-limited institutions. Underrepresented groups are encouraged to apply and are actively recruited. Students are provided access to Jackson Lab's resources such as courses and conferences, state-of-the-art instrumentation and bioinformatics databases, and housing in an oceanfront dormitory overseen by professional staff. Jackson Lab offers a stimulating environment in which undergraduates with a passion for hands-on experimental science can contribute to real research progress and make great strides in intellectual and personal growth. Additional information is available at http://www.jax.org/education/ssp.html, or by contacting Jon Geiger at [email]; or the PI, Barbara Knowles.